Group Travel to attend the Second ISHMT-ASME Heat and Mass Transfer Conference and to Generate Cooperative Research Projects, December 1995, India

9507551 Jaluria Description: This proposal requests travel support for US participation at the Second Conference of the Indian Society for Heat and Mass Transfer (ISHMT) to be held December, 1995 in Mangalore, India. ISHMT is the nodal agency in India for stimulating research in this area of thermal sciences. Heat and mass transfer play a very important role in manufacturing industries and in industrial processes. Understanding of the phenomena that underlie industrial processes is essential for the optimal design of equipment, components, and efficiency of processes. The objectives of the conference are to promote the exchange of technical information in this rapidly evolving field, to identify areas of cooperation between industry and research institutions, and to further enhance the existing level of US-Indo collaborations. Participants will have the opportunity to discuss the state-of-the-art in areas of prime interest in both countries and to visit India's leading research centers such as the IITs, the Indian Institute of Science and the National Aeronautical Laboratory, Bangalore. Scope: Thermal sciences are expected to play an important role in the development of national critical technologies in the next decade. In addition to the national effort, there is considerable effort to internationalize research and technology development in thermal sciences, particularly in the area of heat and mass transfer. India is one of the leading countries in Asia that conduct significant research in heat and mass transfer. The conference is organized to allow for dialogue among potential collaborators and the development of focused research proposals. US-Indo collaboration is currently well below its potential considering the level of activity in the field in each country. ***